Theoretical Foundations for Computer-Supported Collaborative -Competitive and Domain-Dependent Negotiation in Large Scale Engineering Systems

9626315 Pena-Mora This project seeks to explore how negotiation models can best be shaped to fit needs of the large-scale engineering environment, and hoe the negotiation table within that environment might benefit from the model. Because the negotiation "table" under consideration is a computerized communication network, this research will include recommendations on how to capture the theoretical knowledge and translate it into a usable element within a computerized decision- making system or computer supported design environment.